Aiming for Algebra

Aiming for Algebra is a project of Girlstart, a nonprofit organization in Austin, Texas.
Its goal is to prepare middle school girls for and support their completion of Algebra 1
in the eighth grade as a means of readying them for college preparatory math and science
classes in high school that lead ultimately to completion of the college majors required
for SMET careers. The primary objectives of the initial 36-month demonstration period
include improving girls self confidence and academic self-esteem; increasing girls'
awareness of SMET careers and the high school and college coursework required to enter
such careers; enhancing girls knowledge of and ability to use algebra in their lives;
improving parents awareness of SMET careers for women; and increasing parents'
awareness of ways to encourage their daughters' success in algebra and
subsequent math and science courses in high school and beyond.

The proposed intervention methods to achieve these ends include participation in an
integrated continuum of activities as part of a ifgirls-only science math clublc over
a three-year period, as well as involvement in a range of other community- and
Internet-based math and science experiences with parents and other adults. The
intellectual merit of this project derives from its translation of a significant
portion of the body of previous research on the best practices for addressing gender
inequities in SMET careers and the disparity in the mathematics and science
achievement of girls in the United States into a single, cohesive informal program
approach. Moreover, the project will employ a cohort design that will facilitate an
understanding of what parts of the intervention model have the most impact on the
intended outcomes. A rigorous evaluation component and a strong dissemination plan
further strengthen the likelihood that Aiming for Algebra will result in a better
understanding of how specific programmatic activities affect girls mathematical
skills and their attitudes about and aspirations for math and science careers.
The straightforward, unwavering focus on the completion of Algebra 1 in the eighth
grade is another feature
that makes this project meritorious. By tying its success to a single, observable goal
and directing all of its energies to achieve this one purpose, the project sets itself
up for rigorous comparison with other efforts with an identical goal. Aiming for Algebra
intends to make its methodologies so transparent and so well documented that future
research and demonstration projects can be erected squarely on the intellectual
capital it creates and disseminates. Insofar as its broader impacts, the project will
contribute to an improved understanding of the ways girls can be best prepared for
taking and making good grades in Algebra 1 before they reach high school; it will
advance understanding among teachers and teacher preparation programs of how girls'
expectations of their science and math performance in high school and beyond can be
improved; it will provide empirical evidence of ways that female members of groups
underrepresented in SMET careers- including but notlimited to those who are ethnic
and racial minorities, low-income, linguistic minorities, and differently abled- can
be included in informal programming designed to redress the inequity; and, perhaps most
importantly, the project will benefit society by improving the nation's ability to
identify and remedy long-standing social, economic and academic practices that have
disadvantaged its female population and created obstacles to their full and equal
participation in scientific, mathematical, engineering and technological professions.